Mathematical Sciences: Resonances in Coulomb-Like Quantum Systems with External Field

This career advancement award supports the research of Professor Shubov to study the asymptotic behavior of resonances for Schrodinger operators with Coulomb-like potentials. Professor Shubov also intends to investigate many-particle quantum systems. Modern physics, quantum mechanics and relativity, is a product of the twentieth century. It is founded firmly in the last century's attempt to address the microstructure of matter and to come to grips with the concepts of action-at-a distance, electro- magnetism, and heat radiation. The mathematical foundations for these developments, collectively called mathematical physics, ranges from detailed analysis of Schrodinger operators, which governs the dynamics of particles, to unified field theory, which attempts to unite the four known forces into a single theory.